Research Experiences for Undergraduates in Chemistry at California State University

Professor Kenneth W. Chan and other members of the Chemistry Department of California State University-Fresno (CSU-Fresno) are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. During the summer of 1990, ten (10) undergraduate students will spend eight (8) weeks actively engaged in a variety of research projects. Projects range from development of a method for determining carbofuran in groundwater to modification of sample introduction methods used for atomic spectroscopy. These undergraduate students will participate in the Summer Research Institute sponsored by the CSU-Fresno Chemistry Department. This institute involves students from the high school to the graduate level and provides opportunities for seminars, field trips, and other professional activities.